I-Corps: Translation Potential of a Co-Packaged Optics Platform for Scalable Electronic-Photonic Integration

This I-Corps project is based on the development of advanced semiconductor packaging technology used in the manufacture of electronics. The technology allows electronic and optical components to be combined onto the same integrated circuit (“chip”) using existing manufacturing equipment. The growing use of artificial intelligence (AI) and cloud computing requires ever-faster ways to move information between chips. Current approaches to combine light-based and electronic components are slow, costly, and difficult to scale, creating a bottleneck that limits performance while driving up energy use. Semiconductor-based applications already consume a substantial and rising share of global electricity, and demand for faster, more efficient data processing is accelerating. The proposed technology addresses this by enabling a low-cost, scalable manufacturing approach that integrates optical and electronic structures that connect two or more circuit elements without specialized alignment equipment, allowing chips to communicate using light more efficiently across a broad range of wavelengths. This technology may be used to reduce energy consumption in computing infrastructure, lower costs for advanced electronics manufacturing, and support for the continued growth of AI, cloud services, and high-performance computing. In addition, it potentially may have broad potential applications across semiconductor markets, positioning it as a foundational enabling technology.

This I-Corps project utilizes experiential learning coupled with first-hand investigation of the industry ecosystem to assess the translation potential of advanced semiconductor packaging technology using a co-packaged optics (CPO) platform. This technology enables simultaneous packaging of electronic and photonic components through passive top-and-bottom assembly, using standard automated pick-and-place tools already employed in semiconductor packaging lines, eliminating the need for active optical alignment. This differs from existing CPO approaches, which typically rely on actively aligned edge couplers or grating couplers, both of which are labor-intensive, and difficult to scale, with grating couplers being limited in bandwidth. The proposed coupler instead offers ultra-broadband, low-loss optical coupling across the full C, S, and L bands (1450 to 1640 nm), exceeding the spectral range of conventional interconnect solutions. Prototype devices have demonstrated strong coupling performance, thermal stability across a 20 to 60 °C operating range, and high measurement repeatability, indicating suitability for multiple applications. By combining passive alignment, broadband operation, and volume manufacturability, this technology may resolve a key scaling bottleneck for next-generation electronic-photonic systems. In addition, this may reduce assembly cost and complexity, create higher interconnect bandwidth, and improve energy efficiency in advanced semiconductor packages.